A Program of Intermediate Energy Nuclear Physics

9420787 Nathan Research will be carried out in high energy electron scattering, photonuclear reactions, and in fundamental properties of the muon with the goals of determining the spin and flavor structure of nucleons, observing manifestations of quark degrees of freedom in nuclei, and in probing the hadronic structure of the muon (a twenty-fold improvement on the determination of the muon's anomalous magnetic moment). Research in these areas will advance our understanding of the nucleon in terms of constituent quarks and sea-quarks (quark-antiquark pairs surrounding the constituent quarks) and probe TeV mass scale hadrons and how they affect electro-weak processes through radiative corrections. These topics are among the most exciting in nuclear and particle physics. Development and construction of major state-of-the-art equipment, including laser-pumped polarized gas targets, specialized detectors, and spectrometers, is integral to this activity. Education of graduate students and postdocs is a strong component in every aspect of this umbrella grant for the Illinois Nuclear Physics group. ***